Advances in Organizational and Social Informatics Workshop

There are three objectives for this workshop, the most important of which is the articulation of emerging interdisciplinary research domains, called organizational informatics and social informatics, that focus on the social dimensions of the integration of computerization and networked information into social and organizational life, including the roles of information technologies in social and organizational change. Organizational informatics is viewed as a subarea of social informatics. Findings and theories belong to organizational informatics when they can be characterized in terms of the participants of organizations. Using this criterion scholarOs and researchers understandings of the adoption, use, and impacts of groupware fall well within organizational informatics. In contrast, the Internet is used by millions of people outside of their worklives, and the character and consequences of the public's use of the Internet is a topic outside of organizational informatics, but within social informatics.